Chemical Evolution and Globular Clusters

9314911 Smith Our knowledge of the origins, history and distribution of the chemical elements rests on measured elemental abundances in stars and interstellar gas. Key clues are found in the abundance patterns of certain elements. Detailed abundance analyses of the heavy elements will be carried out for stars in globular clusters. This yield crucial evidence on the early chemical evolution of the galaxy and the time scale for the formation of the globular clusters.